RIA: Genetic Algorithms in Connectionist Networks for Reinforcement Learning Control

This project will investigate the view of genetic algorithms (GAs) in reinforcement learning problems. In particular, the research deals with using GAs to specify connectionist or neural network (NN) systems for such problems. An analogy between the principle GA-based machine learning paradigm, learning classifier systems (LCSs), and neural learning paradigms suggests the proposed avenue of research. Using the analogy, extensive experience with genetics-based machine learning in LCSs can be directly transferred to a larger body of connectionist learning architectures. The proposal outlines a range of such architectures, and experiments designed to evaluate performance of these architectures under various reinforcement learning conditions. The proposed research differs from typical NN/GA studies, in that most studies consider a population of NNs with a GA applied to tuning connection weights. This proposal suggests an LCS-inspired approach, where the GA determines connections within a single NN, by forming new hidden units. The GA's population-oriented search process is well suited to this task. The proposed work has two goals: to refine understanding of evolutionary- connectionist systems, and to suggest methods for integrating such systems into workable reinforcement learning controllers.